Small Grants for Exploratory Research: A New Graphical Method for Numerical Modeling in Flow Domains with Complex and Deforming Boundaries

This is an SGER project. A graphical programming method is proposed for single and multiphase flows in two and three- dimensions. The flow domain is drawn using spatial vectors, which provide the input data for any complex flow situation. The information may be directly visualized on a computer screen by using a limited set of graphics functions, with single or multiple colors. The method reduces significantly the programming time, uses much less computer memory, and allows for modeling with increased localized resolution, easy and fast interactive access to data. The method particularly useful for multidomain flow problems, such as multiphase flows. The method is simple, make use of the existing hardware,a nd may lead to good performances in multidimensional complex flows. The proposed approach is suitable for the workstation environment.